Pseudoholomorphic Curves in Low-Dimensional Topology

DMS-0204681
Michael Hutchings

This project involves the development and application of new
enumerative invariants in low-dimensional, symplectic, and contact
topology. There are two main goals. The first is to develop and
compute ``periodic Floer homology'', a theory defined for an
area-preserving surface diffeomorphism, which counts periodic orbits
together with embedded pseudoholomorphic curves in R cross the mapping
torus. This theory is conjectured to agree with the Seiberg-Witten
Floer homology of the mapping torus, thus giving a link between low
dimensional topology and surface dynamics. Also, an analogue of
periodic Floer homology for three-dimensional contact manifolds should
have applications to the topology of overtwisted contact structures
and smooth four-manifolds. The second main goal is to develop and
compute invariants of families of equivalent objects in different
versions of Floer theory. These give topological invariants of
families of symplectomorphisms, three-manifolds, Legendrian knots, and
any other type of object for which a version of Floer theory can be
defined.

This project fits into the broad theme of developing tools to
understand the possible global shapes of three and four dimensional
spaces. For example the universe we live in is a four dimensional
space if one includes time, and its global structure is not known.
The tools used here to understand the shape of a space involve
counting interesting geometric objects inside the space. An important
class of such objects are pseudoholomorphic curves, which are surfaces
resembling soap films. By counting the number of such surfaces with
appropriate constraints that exist in a space, one can gain
information about the global structure of the space.